AGS-CIF: COWNET--COW, Mini-COW, Rapid-Scan DOW, CROW-X, and Mobile Mesonet

This award supports the operation of the Community Instruments and Facilities (CIF) program to enhance the scientific community’s access to instrumentation that is otherwise too costly or complicated to operate for most institutions. This award is for a set of mobile radars and instruments that can be used by the broader scientific community to study a variety of atmospheric processes, from tornadoes to snowfall. Research that makes use of the facility typically has direct relevance to understanding and forecasting high-impact severe weather. The facility will also be used to offer workforce training in radar technology and operations through outreach events and hands-on training.

This facility is comprised of two C-band radars, two X-band radars, and a network of four vehicles with instruments to measure surface temperature, humidity, pressure, and wind. The facility is available for studies of severe and high impact weather, such as tornadoes and hurricanes, fire weather, and winter storms. The instruments are also well-suited for studies of precipitation and hydrology, such as orographic processes and precipitation microphysics.